A Study of The Relationship between Learning Style and Preference for Online Informal Educational Activities

Educational Web Adventures LLP, representing a collaboration of two educational Web developers and two museum researchers, will conduct research to explore the role of learning style in online informal learning experiences. The study will develop ways of measuring learning style among children ages 10 to 12 and test hypotheses about learning style, activity preferences, engagement and satisfaction. The researchers hypothesize that, when the shape of the learning experience fits an individual's preferred learning style, the experience will be more engaging and more satisfying.

The study will examine the following questions through laboratory and online testing:

How can children's learning styles be identified?
How do children's learning styles affect their preferences for online activities?
Do activities that match the individual's preferred learning style result in greater engagement and satisfaction?

How can the research findings be applied to the development and design of more successful online learning activities?